Collaborative Young Scholars Training with E-mail Follow-up and Outreach

9353074 Martin The University of Alabama at Birmingham, Southern Research Institute and Alabama School of Fine Arts will initiate a 4 week summer residential Young Scholars project in the physical sciences for 36 students entering the 11th and 12th grades. This summer program will emphasize small team learning, hands-on activities in the research laboratory and an individualized approach to the discipline related instruction. Classroom instruction on "Doing Science" will emphasize class discussions, hands on exercises and outside readings. Additional classroom instruction on "Using Computers" will introduce students to Mathematica, UNIX and other local computer based communication. Career exploration and ethics of science activities complete the program. ***